GOALI: Experimental and Theoretical Studies on Compaction with Application on Pharmaceutical Powders

CMS-0100063
EXPERIMENTAL AND THEORETICAL STUDIES ON COMPACTION WITH APPLICATION ON
PHARMACEUTICAL POWDERS
Antonios Zavaliangos and Iosif Csaba Sinka
GOALI - NSF/CMS

In contrast to the scientific advances in drug design, tablet processing has
been dominated by empiricism, and it presents a bottleneck for transition to
market of new discoveries. In this basic research project, Drexel
University and Merck & Co., Inc. aim to develop a science basis for the
compaction of pharmaceutical powders that leads to solid dosages. Specific
objectives of this study are to: (i) establish experimental procedures for
characterization of pharmaceutical powders under conditions characteristic
of industrial operations. (ii) determine experimentally the origin of rate
effects and their influence on the mechanical properties of tablets, (iii)
formulate constitutive models that portray accurately the behavior of powder
mixtures during compaction, (iv) develop design guidelines that will allow
rational decision making in pharmaceutical powder formulation.